ARFMP: Renovation of Chemistry Department Support Systems

This Academic Research Facilities Modernization Program (ARFMP) award from the Research Facilities Office provides funds to the University of Idaho for the renovation and repair of Renfrew Hall which houses the research and research training activities of the Department of Chemistry. This building was constructed in 1963 and last renovated in 1981. The ARFMP grant of $1,300,000 and $1,948,000 provided by the grantee as cost sharing will be used to modernize these research and research training facilities. This project will address the need to improve the current research infrastructure both in terms of current standards of laboratory services and of federal and state safety requirements by upgrading the ventilation, electrical, plumbing, lighting, and fire detection and protection systems. This award contributes to the infrastructure of science by providing an improved environment for the conduct of research and for the training of quality undergraduate and graduate students in the only Ph.D.-granting chemistry program in the state of Idaho. The ability to train students in these laboratories to meet the future needs of the state and the nation will be markedly enhanced by this renovation.